Parallel Processing: Design, Analysis, and Implementation of Parallel Algorithms

This project will bring ten undergraduates to work in the Computer Science Department at the University of Missouri, Rolla in the summer of 1992. Recruiting will be primarily from the midwest, and will be directed at students who have limited or no opportunities for research projects. The students will be introduced to the job of a researcher, and to basic research techniques. Students will be involved in the design, analysis, and implementation of parallel combinatorial optimization algorithms, to include parallel composite graph coloring algorithms.